Mode II Fatigue Crack Propagation Due to Contract Loading

This project supports research on the phenomenon of fatigue crack growth. Understanding the phenomenon is important for contact loading situations encountered in bearings, gears, and wheel/rail applications. Much research on crack growth has been done for tensile loading. This project focuses on compressive/shear loading and comprises three phases covering characterization of load path experienced by a crack tip, examination of behavior of a crack branch during a stress cycle, and finally the development of growth law applicable to contact loading. The theoretical work is swupplemented with an experimental component.